Problems in Discrete Pattern Matching

Discrete pattern matching includes a large class of problems of pattern matching over discrete domains. These problems are driven by several applications, mostly in the areas of molecular biology and information retrieval. There are several features that are common to most of these problems. The input is usually a sequence, a set of sequences, a set of integer-weighted sequences, or even a graph of sequences, over a finite alphabet. The goal of the problem is to identify common patterns (i.e., a subsequence or a set of subsequences) that satisfy several constraints and/or optimize several objectives. The problems differ not only by the constraints and objectives, but also by the type of input. This project mainly concerns algorithmic questions in discrete pattern matching. The investigators will identify important problems, develop new algorithms for a variety of problems, find common algorithmic techniques, and study relationships among different problems. The emphasis will be on four kinds of problems which are identified by their domains: sequence comparisons, which involve problems of finding large common subsequences of two (or more) sequences; pattern-sequence comparisons, which involve finding more complicated patterns, such as regular expressions of sequences, in given sequences; pattern matching in hypertext systems, which generalizes the previous problems to "hyper- sequences" or, in other words, pieces of sequences connected by links; and hierarchical pattern matching, which involves finding patterns over domains that are by themselves patterns obtained from other matches.